Analytical and Numerical Methods for Transport Equations

0104112
Petrova

This project addresses some problems in transport equations, Godunov
type central schemes for hyperbolic conservation laws, classical and
nonlinear approximation. The common thread that runs through the
proposed research is the use of techniques from approximation theory,
harmonic and functional analysis (Littlewood-Paley theory, wavelet
decompositions, maximal functions, interpolation and K-functionals) to
prove analytic results in other areas of applied mathematics and to use
these techniques to develop numerical methods. Particular emphases will
be placed on several issues: development of a satisfactory theory for linear
transport equations in several space dimensions which arise when
linearizing the nonlinear problem, development of Godunov type central
schemes for solving multidimensional systems of conservation laws, and
application of these schemes to various problems and models. Extensions
of averaging lemmas to go from microscopic to macroscopic formulations
will also be of primary concern. A portion of this project will address
fundamental questions in nonlinear approximation and multivariate
cubature.

The areas under discussion (nonlinear approximation, analytical properties
of solutions to transport equations and development of effective numerical
methods for their computation) are of significant practical interest. The
applications include image processing, statistical estimation, fluid
mechanics, geophysics, meteorology, astrophysics, multi-component
flows, ground water flow, semiconductors, and reactive flows.